Plant Cell Culture Process Development for Production of Trichosanthin

This study will evaluate the feasibility of a plant cell culture process to produce a protein product. The system which will be studied is the production of a protein, trichosanthin, from plant cell cultures of Trichosanthes cucumerina and Trichosanthes kirilowii. Trichosanthin is a fairly well characterized protein that has been reported in the literature and may have significant value as a human therapeutic agent. In addition to improving the understanding of the important engineering aspects of plant cell cultures, the development of plant cell culture process technology for trichosanthin may lead the way for development of processes for production of other ribosome inactivating proteins.